The AMANDA- II Project

Abstract 9528559 Morse This project, which is a renewal of an ongoing effort, makes use of the ice sheet at South Pole to build a large detector of very high energy astrophysical neutrinos. The detector is being constructed between 1,400 and 2,100 meters below the surface by melting holes into the ice with a hot water drill and then freezing in long stings of widely space photomultiplier tubes. On the rare occasions when very penetrating upward going neutrinos, which have passed through the bulk of the Earth, interact in the ice, producing charged particles, the Antarctic Muon and Neutrino Detector Array (AMANDA), detects the resulting flash of light, from which the energy and direction of flight of the original neutrino can be deduced. The present detector has eight string in place, and this award will provide the manpower necessary to expand AMANDA to 20 strings and to analyze the resulting data. AMANDA is a collaboration of the University of Wisconsin (this award), the Universities of California at Berkeley and Irvine, the Universities of Stockholm and Uppsula (Sweden), and DESY (Germany). The institutions other than Wisconsin are funded through different channels. The hardware for the new equipment has already been provided for by a FY95 NSF Academic Research Infrastructure award and by the foreign funding agencies. ***